A Study of Place: Satellite Technology Fuses Earth Science and Human Geography

9911224
PAGET

'A Study of Place" integrates geographic visualization technologies into the study of earth science and geography at the middle school. Two modules, each of four to six weeks duration, are "The Antarctic Continent: Ice Climate and Exploration,' and 'The Atlantic and Its Coasts: Currents and Commerce.' Each module is driven by science and geography standards and has a common sequence. A dilemma or mystery of an historical event in a particular geographic setting frames the unit. Central earth science concepts are developed in tandem with investigative, image analysis, and mapping skills. Core understandings are built in the context of current research. A parallel study in a related or extended setting is carried out and becomes the assessment. The materials use satellite images, advanced geographic visualizations and other computer technologies. The materials are disseminated on the Web as are teacher guides that support teachers in their learning to use non-traditional classroom strategies.